Long-term Measurements and Observations for the International Arctic Research Community on the Kuparuk River Basin, Alaska

The overall goal of this project is to continue making systematic hydrologic and meteorological measurements responsive to science community needs on the Kuparuk River on the North Slope of Alaska, an representative extensively studied watershed. The project will produce timely high quality, long-term data to improve understanding of hydrological processes, to detect and quantify climate induced change, to enable the development of new models of hydrologically related processes in time and space and to verify remote sensing techniques.